Computer Simulations and Laboratory Experiments on Ion Diffusion in a Plasma

Computer simulations will be carried out which will provide models for laboratory experiments designed to measure the Fokker-Planck coefficients in a fully ionized plasma. Attention will be focused on the modeling of diffusion processes and computer codes for plasma simulations will be used to model various initial conditions. The modeling will be extended during later phases of the research to include two and three dimensional studies.